Expression of Cloned Mammalian Beta-Adrenergic Receptor Genes by DNA-Mediated Gene Transfer

This research planning grant will allow Dr. Hertel to conduct a pilot study on the genetics of beta-adrenergic receptors. This is an important topic and this small award will allow her to develop the basis for an expanded independent research program.